U.S.-United Kingdom Cooperative Research: Fluids in Micropores

WPC 2 B V V Z Z #| w le) 8 w C ; , WX w P 7 X P " m ' ı ^;C dd CCCd CCCCddddddddddCC Y ~ ~w CN ~ s k~ CCCddCYdYdYCdd88d8 ddddJN8dd ddYYdY C dd dddCCCC dddddd ddd8 Y Y Y Y Y Y~Y~Y~Y~YC8C8C8C8 d d d d d d d d d d Y d d d d dsd Y Y Y Y Y Y Y d~Y~Y~Y~Y d d d d d d d dC8C8C8C8 oN d~8~8~8~8~8 d v d d d d J J JkNkNkNkN~8~8~8 d d d d d d d Y Y Y d~8 d JkN~8 d d d d d C dd C CC/ N d ddCYQQdd ddd dFdddd F CC hhd 44 ddzz d d d w oo dCh d F" d h dÕ dCC z xC d dod dCd Yds z Uw d Y Y C C C C z~o zo Y~N Y d YC8 Y o o Y d Y zsdzd d~Y Y z o zzzzNd88YYYzYz z zz CCddddd dd zzzzzzzzzzzzzzzzzzzNNNNNNNdddddddddddddddddddd888888888888YYYYYYYYYYYYYYYYYYYzzzzzzzzzzzzzzzzzzzzC s ~ C zC d dYC xHP LaserJet III HP_LJ_3.PRS X w P 7 , \ , X P 2 j V #| w CG Times (Scalable) 8 w C ; , WX w P 7 X P 2 Z J R " m ' ı ^;C dd CCCd CCCCddddddddddCC Y ~ ~w CN ~ s k~ CCCddCYdYdYCdd88d8 ddddJN8dd ddYYdY C dd dddCCCC dddddd ddd8 Y Y Y Y Y Y~Y~Y~Y~YC8C8C8C8 d d d d d d d d d d Y d d d d dsd Y Y Y Y Y Y Y d~Y~Y~Y~Y d d d d d d d dC8C8C8C8 oN d~8~8~8~8~8 d v d d d d J J JkNkNkNkN~8~8~8 d d d d d d d Y Y Y d~8 d JkN~8 d d d d d C dd C CC/ N d ddCYQQdd ddd dFdddd F CC hhd 44 ddzz d d d w oo dCh d F" d h dÕ dCC z xC d dod dCd Yds z Uw d Y Y C C C C z~o zo Y~N Y d YC8 Y o o Y d Y zsdzd d~Y Y z o zzzzNd88YYYzYz z zz CCddddd dd zzzzzzzzzzzzzzzzzzzNNNNNNNdddddddddddddddddddd888888888888YYYYYYYYYYYYYYYYYYYzzzzzzzzzzzzzzzzzzzzC s ~ C zC d dYC xHP LaserJet III HP_LJ_3.PRS X w P 7 , \ , X P 2 9214115 Gubbins This three year award supports U.S. U.K. cooperative research in chemical engineering involving Keith Gubbins, Cornell University, and David Nicholson and Neville Parsonage at Imperial College of Science, Technology and Medicine, Nicholas Quirke at British Petroleum research in the United Kingdom. The objective of the research is to understand the behavior of fluids confined to narrow pores (micropores) using statistical mechanics and molecular simulation. They will study adsorption and diffusion in micropores; the behavior of simple fluids and mixtures in microporous carbons; and the behavior of microporous carbons and aluminophosphates. Using experimental data, the investigators will calculate pore size distributions and pore connectivities. Porous materials and processes are widely used in industry to carry out chemical reactions and purification and separation processes. The proposed research will advance our understanding and lead to new porous materials and improved and more efficient processes. The U.S. investigator brings to this collaboration expertise in molecular dynamic simulation and computer simulation of adsorption and diffusion in micropores. This is complemented by British expertise in the methods of statistical mechanics of confined fluids and British experimental studies on fluids' behavior and the synthesis of porous materials.